Rural Systemic Initiatives in Science, Mathematics,and Technology Education - RSI: Leadership Development for Master Teachers

ABSTRACT--TMCC LDMT

The project would work with teachers who are involved in the RSI reform. It would provide professional development opportunities to the teachers in the RSI schools, and would develop and institutionalize standards-based curriculum for reservation schools. These activities are strongly aligned with the goals of the RSI project. The professional development offered to teachers would be heavily content-oriented, with some pedagogical training.